Mathematical Sciences: Research Experiences in Parallel Numerical Linear Algebra

The program is designed to bring together 8 very bright undergraduates from colleges and universities throughout the country, where there is little or no opportunity for undergraduate research. Participants will be given an opportunity to learn how to do research in mathematical and computational sciences and they will be involved in numerical linear algebra and parallel computing research projects. Activities include instruction and laboratory experience in numerical algorithms for linear algebra, parallel programming languages, learning how to use a multicomputer (32-processor Intel iPSC/860, network of SUN workstations using MPI programming environment), literature review, design of parallel algorithms and their implementation on the multicomputer, presentation of research results. The program this summer begins May 30, 1997 and lasts 8 weeks. The participants may continue on their research when they return to their home institutions and prepare a paper for presentation. In the past, students have made presentations at UMR, a national undergraduate research conference, and at the Annual Argonne Symposium for Undergraduates.